NIRT: Mechanics of NanoTurfs: Multiscale Modeling, Experiments and Characterization

Recent developments in nanostructures have brought to light exceptional electromagnetic, thermal and optical properties of a class of foam-like nanostructures formed of disordered intertwined structural units (nanowires, nanobelts, nanotubes). Such disordered assemblies are named turfs. Applications include thermal switches, flat panel displays, hard discs drives, and, chemical and biological sensors.
Although the mechanical properties are usually not the primary service characteristic of turfs, they are nevertheless of paramount importance. Irrespective of application, the turfs are often subjected to mechanical loads, either as service load as in thermal switches, or, as accidental contacts. Under externally forced deformation, the nano-topology of the turf changes, which, in turn, affects all the other effective properties: electrical, thermal, optical, sensing and permeability.
We will develop an integrated approach to the problem: multiscale modeling, nanomechanical experiments, and, nanostructure characterization, with the following objectives:
Understanding and quantification of the behavior of turfs as materials on the basis of the physical and geometrical properties of the individual units and their collective behavior in the assembly.
Development of the nanoscale characterization methods that reveal the relevant parameters of the nanostructure.
Practical technological impact of the project is that the results will enable rational design of nanoturfs tailored for particular application in sensors, thermal switches and other devices. The REU component of the program is carefully structured and includes assessment methods, developed and proven at the Center for Teaching and Learning at WSU. Our pilot student mentoring program will provide graduate students with mentoring experience a skill that PhD graduates need, but is sorely missing in most graduate programs.